Real analytic geometry and model theory

Miller proposes to continue his research on the model theory of
expansions of the field of real numbers, concentrating on further
developing the model theory and analytic geometry associated with
o-minimal, and certain other well-behaved, expansions of the field of
real numbers. He intends to do this by applying techniques from
descriptive set theory and geometric measure theory in addition to the
model-theoretic and analytic-geometric techniques usually associated
with o-minimality. In turn, Miller hopes to apply model-theoretic
techniques to questions in descriptive set theory and geometric measure
theory. Miller has also begun to collaborate with applied mathematicians
and control engineers on applications of model theory to hybrid control
systems, and intends to continue.

Many results of so-called classical mathematics are very general; they
apply to a wide variety of input, so to speak, so we must expect to have
to deal with a correspondingly wide variety of output. However, we
could hope that if the input is, in some respect, particularly well
behaved, then the output would be similarly well behaved. This turns out
to be true in many important cases, but to see this usually requires
new, more constructive proofs of classical results, as well as a deeper
understanding of the good properties of the input. Before we can even
begin such projects, though, we need some way of deciding which
mathematical objects (inputs) should be considered as well behaved, and
which should be considered as troublesome. This can be a difficult
matter. The theory of o-minimal structures on the real field, a
sub-discipline of mathematical logic, has been developed in large part
to deal with this issue. This has been a rapidly-developing area for the
last decade, with many contributions from---and cooperation
between---several branches of mathematics and logic. Applications, and
potential applications, of these developments have been found in areas
as diverse as theoretical economics, neural-net learning theory, and
hybrid control systems.